Theory of L-functions, prime numbers and divisors

This project is concerned with investigations into the distribution
of zeros of L-functions, prime numbers and divisors of integers.
The distribution of prime numbers and zeros of L-functions have long
been known to be related, but some relations have only recently come
to light. Together with A. Zaharescu and K. Soundararajan, the
investigator is exploring connections between fractional
parts of imaginary parts of zeros of L-functions, counts of
prime numbers in short intervals, and the pair correlation of zeros
of L-functions. A second area of study involves uncovering
subtle inequities in the distribution of numbers with exactly
k prime factors (k>1) in arithmetic progressions, problems intimately
connected with the location of the zeros of Dirichlet L-functions.
A focus of the research is examining differences between the
the behavior in arithmetic progressions of primes (k=1) and "almost
primes" (k>1). Thirdly, the investigator will continue studying
how the divisors of "typical" and "atypical" integers are distributed.
Investigations into the probability theory underlying the study of
divisors will be a major theme.

The positive integers are perhaps the most basic objects in
mathematics, and it is important to understand their multiplicative
structure - how they may be written as products, both of
prime numbers and in general. Questions about the distribution of
integers with a certain multiplicative structure, especially prime
numbers, are often very difficult and poorly understood.
Several problems of this type are being investigated in this project, with
particular emphasis on the connections with the behavior of
special functions called L-functions and with probability and
statistical theory.